System Identification and Nonlinear Wave Equations for the Modeling of Soil Properties

Of importance to geotechnical and structural engineers, and for
nondestructive evaluation in general, is the ability to estimate
soil properties and structural properties, respectively, without
intruding into the medium. This project involves using time
series analysis on data that has traveled through the earth or
through a structure to determine physical properties of the
medium. System identification techniques will be used to model
the system. The main research effort will be the mapping from the
system identification coefficients to the physical parameters of
a more realistic physical model than has been previously
employed. A model that takes into account distributed mass on a
discrete level (not just lumped mass) and damping due to friction
(not just viscous damping) will be employed. Plane wave solutions
will be considered to determine the mapping from the SI
coefficients to the physical parameters. There are interesting
mathematical questions in determining the existence of plane wave
solutions, the numerical computation of such plane wave
solutions, the effects of lattice induced anisotropy due to the
discrete nature of the distributed mass, and alternatives to the
ARMA model for system identification. The PI will work at the
Department of Civil and Environmental Engineering at the
University of California, Berkeley, collaborating with Professor
Steven D. Glaser.

This IGMS project is jointly supported by the MPS Office of
Multidisciplinary Activities (OMA) and the Division of
Mathematical Sciences (DMS).